Architectural and Organizational Issues for High-Performance Uniprocessors

Caches and write buffers are becoming increasingly important to memory hierarchy designs since they are the key components for bridging the widening performance gap between microprocessors and DRAMs. This research studies the details of memory-referencing behavior in contemporary uniprocessors such as multiple referencing behavior . In particular, the research investigates the fine distinctions that characterize data references with respect to their cache and write-buffer behavior, and also studies possible architectural and organizational enhancements that will benefit writes.